Improvement of the Undergraduate Microbiology Laboratory through the Addition of Chromatography Equipment

The goal of this project is to improve the breadth and balance of educational experiences and to increase students' experimental proficiencies within a group of existing undergraduate Microbiology courses. The acquisition of temperature-programmable gas-liquid chromatographic equipment is faciliating the laboratory introduction of important concepts, principles, and procedures which previously could only be described in the lecture portion of these courses. The incorporation of educational experiences utilizing the newly acquired equipment is consistent with the Microbiology Department faculty's intent to introduce students to conventional analytical procedures in Microbiology, and to emphasize their value in the development of knowledge in these areas. The result should be graduates who are much better prepared for graduate studies or for employment in biotechnical positions.